Mathematical Sciences: Operator Theory and Communications Engineering

Professor Helton has been a pioneer in the theory and application of functional analysis to engineering problems. His research - be it in mathematical analysis or operator theory, filtering, communication, control theory, scattering, or circuit design - is always creative and fundamental. His work is mathematics and mathematical engineering of the highest quality. This multidisciplinary research, a cross-breeding of engineering and mathematics, is exemplary. Based on the extraordinary depth and breadth of this research and its importance to two scientific communities.